Alternative Approaches to Teaching Secondary Mathematics

This Leadership Activities project, centered at both Portland State University and Oregon State University, will provide professional development and programmatic leadership expertise to 60 "leader teacher" in the upper Northwestern United States. An additional 60 "impact teachers" will participate in a 3 week summer program to enhance both their mathematics backgrounds and teaching skills. The leader teachers will also provide in-service education programs in their local area for all mathematics teachers. A set of demonstation videotapes will be produced for dissemination beyond the schools involved in the project. Extensive follow-up by project staff will do much to insure high quality implementation and in-service efforts. A conference meeting in 1987-88 will serve to evaluate the impact of the project and provide the opportunity for determining the continuing activities necessary for quality mathematics education in the schools. The "leader teachers" have already participated in an Honors Workshops for mathematics teachers as part of a former NSF project developed by the Principal Investigators. In addition to conducting a need assessment in their districts, these teachers will identify the "impact teachers" with whom they are going to work both in the summer program and in their schools. The leader teachers will participate in a one- week intensive workshop, prior to that for the impact teachers, in which they will develop plans for their in-service and programmatic leadership activities during following year. Consultants as well as program staff will provide expertise and assistance in these endeavors. An extensive evaluation plan to measure effectiveness of the program for both teachers and students has been developed.